Toward the Effective Use of Geometrically Continuous Techniques

This research deals with the computational, and underlying mathematical, properties of curves and surfaces that exhibit geometrical rather than parametric continuity. Geometrically continuous entites are controllable through various heuristic "shape functions" and may prove to be more suitable for computer-aided design than parametrically continuous entities. Knowledge about computational techniques for establishing and preserving geometric continuity is sparse, and is confined mainly to cubic Beta-spline curves. This research will focus on Beta-spline curves and triangular Beta-spline surfaces of arbitrary polynomial order, and will seek to (1) develop evaluation algorithms, and (2) catalog and classify shape functions for use in CAD.